Neighborhood Rental Database: Real-Time Data for Research

There is no source of up-to-date, representative data on local rent levels in the US. The Neighborhood Rental Database fills this gap. The database uses data from major online rental platforms. It helps decision-makers and researchers in the public and private sectors understand housing trends, design housing policies, and respond to economic changes.

Scientists collect real-time rental data from a variety of online sources. The database provides users with the mean, median, and standard deviation of listed rents in a neighborhood. It reports the 40th percentile rent that is used in setting rent limits for federally funded housing assistance programs. Scientists developed a rent index that can be compared across time and space. The index describes the rent paid by a tenant in a typical rental unit. By aggregating and standardizing this information, the Neighborhood Rental Database enables researchers to model housing dynamics, estimate the impacts of macro- and microeconomic changes, and evaluate housing policies.